Research in Intermediate Energy Physics

This project addresses certain basic aspects of the electroweak and

strong interactions reflected in the properties of mesons and nucleons

(particles found inside atomic nuclei) and their interactions at low

energies. The strong and weak interactions are responsible for the

structure of matter at the smallest known scale, a femtometer (size of

the hydrogen nucleus) or less. The research is motivated by the fact

that the present comprehensive theory -- the Standard Model (SM) -- is

known to be incomplete.

The rare decay of the pi-meson (pion) into an electron and a neutrino,

occurring once in about ten thousand ordinary pion decays, provides a

theoretically extraordinarily clean window to certain possible

extensions of the SM, at a very large mass scale not directly

accessible at any existing or planned accelerators. The PEN

experiment, mounted at the Paul Scherrer Institute, Switzerland, by an

international collaboration of seven institutions led by the

University of Virginia (UVa) group, builds on the success of the

PIBETA experiment which improved by about an order of magnitude the

accuracy of several rare decay modes of the pion and muon (a massive

relative of the electron) in a series of measurements from 1999

through 2004. A new project, encompassing experiments "Nab" and

"abBA," has been initiated at the Spallation Neutron Source at Oak

Ridge National Lab in Tennessee, with the aim to measure precisely and

simultaneously several of the decay parameter of the neutron beta

decay. Through their precision, these experiments will explore

similarly interesting possible extensions to the SM.

During the past five years this program has resulted in four doctoral

degrees at UVa. Two UVa Ph.D. students are currently working towards

their theses, plans call for a third to join the group soon. Each

year typically one to two undergraduate students are engaged in

research on this project, thus gaining practical laboratory

experience.